LOCUS: Levels of Conceptual Understanding in Statistics

The goal of this project is to develop two tests (instruments) to assess conceptual understanding of statistics.

The instruments are based on the levels A/B and on level C of statistical understanding development as described in the American Statistical Association Guidelines for Assessment and Instruction of Statistics Education (GAISE) framework. These instruments will be used to assess knowledge of statistics by grades 6-12 students. The instruments will have multiple-choice and constructed response (CR) items. The CR items will have scoring rubrics. The assessments will be pilot tested in school districts in six states. The instruments will be used by teachers to analyze students' growth in understanding of statistics and will be useable for both formative and summative purposes. An assessment blueprint will be developed based on the GAISE framework for selecting and constructing both fixed-choice and open-ended items. An evidenced-based designed process will be used to develop the assessments. The blueprint will be used by the test development committee to develop items. These items will be reviewed by the advisory board considering the main statistics topics to be included on the assessments. Through a layering process, the assessments will be piloted, revised, and field tested with students in grades 6-12 in six states. A three-parameter IRT model will be used in analyzing the items. The work will be done by researchers at the University of Florida with the support of those at the University of Minnesota, the Educational Testing Service, and Kenyon College. Researchers from TERC will conduct a process evaluation with several feedback and redesign cycles.

The assessments will be aligned with the Common Core State Standards for mathematics (CCSSM) and made available as open-source to teachers through a website. The research team will interact with the state consortia developing assessments to measure students’ attainment of the CCSSM. As such, the assessments have the potential of being used by a large proportion of students in the country. The more conceptually-based items will provide teachers with concrete examples of what statistics students in grades 6-12 should know.